AF: Small: Compact Data Structures for String Matching and Retrieval

In the era of big-data, one needs to organize massive amounts of data
so that it can be searched quickly. This requires the building of an
index over the raw data. In many cases of big-data, like world-wide web
or DNA sequencing, the actual information content is low. This data is
highly compressible. On the other hand, the indexes require space which
is several times the raw data. Thus, indexing and compression are often
conflicting goals. The field of compact (or succinct) data structures
attempts to achieve both these goals -compression and indexability-
simultaneously. This project will address some of the most fundamental
open problems in this field. This will have impact on next generation
biological sequence mining databases which could simply work within the
memory of a PC instead of requiring high-performance clusters. The
foundations built by this project will also impact image matching and
music retrieval. Since data structures is one of the most fundamental
areas in computer science education, research from this project will
also impact data structures curriculum.

Suffix trees are central to string indexing and have myriads of
applications. However, suffix trees are known to take 15 to 50 times
the size of the text they index. This actually stems from a complexity
gap in the size of data which is n log s bits compared to the size of
the index which is O( n log n) bits, for the text of n characters drawn
from alphabet size of s. The techniques of Burrows-Wheeler Transform(BWT)
and Phi-function were introduced in the last decade to address this gap.
Most subsequent research in this field has treated BWT as a black box,
compressing augmenting structures around it to address various
applications. However, many problems (like parameterized pattern matching
and 2D pattern matching) have remained open in this field. This project
will attempt to go deeper and beyond the philosophy of BWT to solve such
issues. It will also try to build foundations for deriving lower bounds
for problems where compact index would be impossible. To create better
understanding of data structure space and query complexity, the project
will explore the recent theoretical model called "encoding model". The
project will also explore the applied case of compressed indexing for
highly repetitive sequences.

For further information see the project web site at:
http://csc.lsu.edu/~rahul/succinct